Microstructural Analysis of Binary Alloys

Tin-Lead (Sn-Pb) solders are widely used as soldering
materials in semiconductor devices. The as-solidified structure
can naturally change over time; however, the evolution can also
be driven by thermal or mechanical loads. Changes in
microstructure, in particular, locally coarsened regions, have
been observed as precursors to the formation of cracks, and
ultimately of failure. Time-dependent, microstructural changes,
coupled to mechanical straining and damage evolution, must be
considered for realistic mathematical models and numerical
simulations. The investigator and her colleague study, through
mathematical modeling and numerical simulation, the fundamentals
of microstructure evolution and its influence on material failure
in Sn-Pb solder joints. In the process, they develop the
mathematical model and numerical capability more generally to
treat the many coupled processes that influence the overall
strength and integrity of a binary alloy.
Microelectronic components are generally attached to printed
circuit boards using solder. The solder joint can serve as the
mechanical as well as the electrical connection. It has been
estimated that on the order of 10,000,000,000,000 solder joints
are produced each year. Damage to solder joints is a primary
failure mechanism in electronic components. Even on the shelf,
daily or yearly temperature cycles, physical handling, occasional
bumps, chemical reactions or radiation can cause damage. Under
operating conditions, thermal fluctuations or mechanical
vibration can be even more severe. For expensive devices, in
critical applications, improved joint integrity can have
enormously beneficial consequences, both economically and in
terms of reliability of components. The modeling undertaken here
can play a crucial role in providing guidance for maintenance of
critical components because it is practically impossible to
examine microscopically individual, in-service joints for
potential failure. The theoretical framework developed here will
also be readily applicable to analyzing self-assembling behavior
and degradation in some nano-scale materials and devices.